Acquisition of an ICP-MS

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Miami University in Ohio will purchase an inductively coupled plasma mass spectrometer (ICP-MS). This equipment will enhance research in a number of areas including 1) the role of metal ions in the reaction mechanisms and chemical behavior of biomolecular systems; and b) thedevelopment of new nanomaterials for environmental remediation or sensors.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. This instrument will be used in advanced biochemistry and instrumental undergraduate courses as well as undergraduate, graduate and post-doctoral research. In addition, these studies will have a significant impact in environmental sciences and biochemistry.